CAREER: Semidefinite Methods for Robust and Discrete Optimization and Their Applications

The objective of this project is to develop and implement new and
efficient optimization methods for robust and discrete optimization
problems. The applications of interest to us are in the fields of
financial engineering and network design. The robust optimization
framework is an attempt to correct for the modeling uncertainties
that are inevitable in engineering. Optimization problems are
especially susceptible to modeling errors since, in trying to exploit
the constraints, the optimal solutions typically amplify the errors
several fold. In the robust framework, the perturbations are modeled
as unknown, but bounded, and optimization problems are solved
assuming worst case behavior of these perturbations. Robustness to
modeling and estimation errors is an issue of critical importance for
financial optimization problems because of the serious consequences
of making wrong bets! Surprisingly, however, robust optimization has
not been widely explored in financial engineering. The research
proposed here formulates robust dynamical models for financial
problems and develops semidefinite rogramming based methods for
solving them. These models systematically account for parameter
uncertainty and robustly update error-bounds as more information
becomes available over time. In addition, the project extends the
semidefinite relaxation methodology to probabilistically robust
optimization problems that naturally emerge in the financial context.
The other research focus of this proposal is on developing
semidefinite models for graph theoretic problems such as the
traveling salesman problem and network design. These models employ
linear matrix inequalities (LM ) to represent geometric
constraints, such as graph connectivity, specified number of
edge/vertex disjoint paths, etc. The optimization problems resulting
from these LM models are, typically, mixed integer semidefinite
programs, i.e. semidefinite programs where some of the decision
variables are constrained to be integers. Currently, mixed
semidefinite programs are appproximately solved by relaxing the
integrality constraints. However, as computational ower increases and
the interior point methods for solving semidefinite programs become
more efficient, the PI expects that there would be a push for
developing systematic methods of tightening the relaxations - as in
the case of linear programming relaxations of mixed integer programs.
As a first step in this direction, the PI proposes to develop several
cutting lane strategies for mixed semidefinite programs. Although the
problems of interest to the PI belong to disparate application areas,
they are linked in that linear matrix inequalities and semidefinite
programming provide the necessary tools to efficiently model and
solve them. The education component of this proposal includes
developing a sequence of graduate courses on engineering applications
of optimization. These courses would fill an important gap in the
curriculum of the Deppartment by providing students with a firm
theoretical and practical grounding in optimization. The World Wide
Web will be extensively used in these courses. All the teaching
material will be available on the web. The PI will develop Java-based
applets for all the examples used in the courses which would allow
students to experiment with these examples in real time. Also, the
optimization resources on the web will be integrated into the
curriculum. This should be particularly useful to students from
industry who would take the courses over the Video Network. To expose
undergraduate students to research, the PI plans to organize an
interdisciplinary research program in optimization and its
applications. To facilitate industry outreach, the PI plans to
implement the results of the proposed research into a software
package and publish expository articles on the applications of the
new techniques. The PI expects that the availability of a user
friendly software will spur further applications and encourage
industrial collaboration.